Neuroscience Research Practices

This award supports a CAREER project that engages in research and teaching activities related to the implications of neuroscience research.The project provides guidelines to stimulate greater collaboration between the neurosciences, academic communities, and the public. Ongoing results from this project will be made available to the public through open forum engagements and to university and high school students through classroom-based lectures to educate a wide audience about neuroscience’s benefits and challenges.

This project uses a qualitative approach to map the relationships between overlapping neuroscientific epistemic communities—funding bodies, publication mechanisms, professional organizations, agencies, research labs, and bioethical domains. The project provides recommendations and educational resources for neuroscience educators and researchers. The project contributes to existing literature in Bioethics, Sociology, Science of Science, and Science and Technology Studies (STS) on the impacts of neuroscience research.